Conference: Geographic Information Science and Early-Career Scholar Development

GIScience will be held 26-29 August 2025. GIScience 2025 is a flagship conference in the field of geographic information science (GIS) and continues the highly successful conference series which started in 2000. The GIScience conference regularly attracts over 250 participants from academia, industry, and government to discuss and advance the state-of-the-art research in GIScience as well as support of the next generation of GIScience students and scientists through conference presentations, workshops, career development panels and social networking opportunities. This award will fund 25 scholars from the United States to help them attend this conference to disseminate their findings, collaborate with other scholars, and receive training in state-of-the-art GIScience techniques.